Mathematical Sciences: Presidential Young Investigator Award

Shelley will work on obtaining a deeper understanding of prototypical phenomena in fluid mechanics, including study of vortex stretching and reconnection, and new numerical methods. Fluid dynamics is an important area of research in mathematics, with applications to a wide variety of problems in science and engineering.